VIGRE Program Meeting 2002, May 3-4, 2002, Reston, Virginia

NSF Award Abstract - DMS-0216549
Mathematical Sciences: VIGRE Program Meeting 2002

Abstract

0216549 Straley

The Mathematical Association of America (MAA), the American Mathematical Society (AMS), the American Statistical Association (ASA), and the Society for Industrial and Applied Mathematics (SIAM), will host a meeting to provide information about the program in Vertical Integration of Research and Education (VIGRE) of the NSF Division of Mathematical Sciences. Attendees will be representative faculty members from U.S. institutions with Ph.D.-granting departments of mathematical sciences. This award supports attendance of these representatives at the meeting.

Since the VIGRE program (now in its third year) has awarded approximately thirty grants, valuable experience with the various core elements of the VIGRE solicitation should now be shared with the mathematical sciences communities. This conference of interested parties will emphasize the experiences and exemplary practices of VIGRE projects nationwide. The format of the meeting allows for discussions of the impact that the VIGRE program has had on the mathematical sciences both locally and globally.
The meeting, held in the Washington, DC area on 3-4 May 2002, includes speakers from institutions that employ mathematical scientists, including a variety of academic institutions, business, industry, and government agencies. It is anticipated that between 125 and 150 interested mathematical scientists will attend this meeting.